Isotopic and Chemical Studies of Mafic Rocks from India Award in Indian Currency

Description: This award supports cooperative research by Dr. K. Gopalan of the National Geophysical Research Institute, in Hyderabad, India with Dr. Douglas Macdougall of Scripps Institute of Oceanagraphy. The work covers geochemical and petrogenetic research in the Deccan basalts of India. The field research is to be carried in three areas, in Gujarat in western India, in the Rajasthan and in eastern India. Each of these areas contains a different geologic structure and possesses a unique relevance to the general field of mantle geochemistry. Samples will be collected and shipped to the U.S. where laboratory work will be done at Scripps. Scope: Drs. Gopalan and Macdougall have collaborated in this research area for several years with significant published results and with a number of U.S. graduate students obtaining samples and data, for their Ph.D. research, from the field in India. The collaborative effort is productive and the results of high quality. Dr. Macdougall is currently funded under two grants: INT8613485 for field expenses in India; and EAR8618554 for research costs in the U.S. This action is being funded under INT8722661 to National Geophysical Research Institute and INT8813233 to Scripps Institute.